Mathematical Sciences: Geodesics and Minimal Surfaces in Manifolds with Non-Posititve Curvature

The research entails studying the geometry and analysis of geodesic flows on classes of Riemannian manifolds relative to their topological structure. Curvature properties of classes of hyperbolic manifolds will also be investigated. Such research may have applications to dynamical systems and mathematical physics.